Databases for Signal Processing Research

Johnson Rice University is establishing a two-part database composed of sampled signals and signal processing software with the Signal Processing Society serving as the gatekeeper. This database will be accessible through the InterNet at no charge to users. Data and programs are being solicited from university, industrial, and military sources. The data will provide a needed testbed for evaluation of signal processing algorithms; the software will provide the signal processing community with state-of-the-art algorithms and simulation systems.